RUI: Judgment and Decision Making on the Internet

Abstract
***
9986436
Michael H. Birnbaum

The Internet provides a new domain of human experience. Estimates of
the growth rate of penetration of the Internet among the population
shows that its use is growing faster than previous innovations
(telephones, radio, and television) that have already become nearly
universal in industrialized nations. The majority of the U.S.
population will soon be using the Internet for communication, commercial
transactions, and entertainment. The Internet also provides an exciting
new medium for the conduct of behavioral research. By means of Internet
research, it is now possible to accomplish in a few weeks what used to
require six months or a year. Because the World Wide Web makes
available an extremely heterogeneous, international sample, it becomes
possible to examine the generality of laboratory research to demographic
groups that have rarely been studied in previous research. This allows
one to investigate if conclusions from laboratory research are unique to
college sophomores tested in university labs or if they have external
validity to a larger population tested under more naturalistic
conditions.
Are the cognitive processes used by the general population on the
Internet the same as those used by students in university laboratories?
There are two aspects to this question that need to be distinguished.
The first is that the people tested are different, so any difference in
results may be due to differences in education, age, wealth, or other
demographic differences among the groups tested. The second aspect is
that the Internet medium itself may itself induce different modes of
thought, reasoning, judgment, and decision-making. This research
explore these questions.
This is a proposal to continue and expand an on-going program of
research on the Internet. In addition to experiments on judgment and
decision-making on the Internet with 6,000 participants, I propose
to conduct surveys of behavioral scientists about the Internet and to
create tools that will make it easier for students and newcomers to
Internet research to adapt their studies to this new medium. By
comparing lab and Web studies, the validity of both procedures can be
tested. By comparing the results for different demographic groups, it
is possible to examine the linkage between such characteristics and
research findings. If behavioral research conducted via the Internet
lives up to its potential, then the process of facilitating the transfer
of such research to the Internet can result in acceleration of the
scientific enterprise.
***